Development of a Modern Undergraduate Computer Graphics Laboratory

An undergraduate computer graphics laboratory using a DEC Microvax II will be acquired. Using interfaces, the computer will serve as a dedicated machine with four existing graphics terminals. Two undergraduate courses will be supported by the laboratory, and seniors will use the laboratory for special projects such as processing astronomical images and producing geological maps.